Research Experiences for Undergraduates in Materials Chemistry

This Research Experience for Undergraduate program is designed to provide seven to ten students with the opportunity to participate in research on the synthesis and characterization of polymer blends, electrochemical energy storage and conversion, the surface chemistry of materials, and superconducting materials. This program interfaces with industry and is strongly supported by Critikon, Inc., which will provide the opportunity for the students to become acquainted with and industrial environment.